Microwave Methods for Lower Fat Patties and Meatballs

9811159 Mahboob The PI proposes to refine and develop a process to prepare low fat hamburger patties and meatballs by subjecting the ground beef to microwave radiation, draining the aqueous/fat liquid produced, separating the fat and aqueous layers, and returning the aqueous layer containing nutrients and flavors to the meat product. ***